Nuclear Theory (Physics)

The pion-nucleus interaction is investigated using a field theoretical, microscopic approach, and used to investigate the reaction dynamics of a pion in the nucleus, and to study new nuclear structure questions. In addition, work is beginning on a study of the pure electromagnetic phenomena arising from the very strong, Lorentz contracted, electromagnetic fields in relativistic heavy ion collisions.